Theoretical Research in Condensed Matter Physics

The discovery of high temperture oxide superconductivity and the related anomalous properties of the normal phase of these materials has posed a challenging set of problems for the condensed matter theorist. Called into question are the traditional concepts and methods of band structure and fermi liquid theory, the conventional pairing theory of superconductivity, the fundamental mechanism leading to superconductivity, etc. There are two limiting approaches to these problems; one begins with a delocalized or itinerant electron description while the other assumes that to zero order the electrons are spacially localized. While the physically relevant situation remains unclear, it appears likely that an intermediate situation is realized in nature. Their program is designed to understand the full range of localized to itinerant behavior, although their emphasis is on the itinerant limit, with many other groups working on the localized limit.